Individual-Particle Experiments in the Remote Troposphere

9713101 Buseck In this project, individual particle methods will be used to characterize aerosols and to examine tropospheric processes that affect aerosol-particle size distributions, concentrations, and chemical compositions. These processes include the generation, fractionation, and reaction of marine aerosol particles; the modification of mineral aerosols as they mix with anthropogenic pollutants; the production of secondary sulfate particles; and the evolution of aerosols during long-range transport in the marine troposphere. The structure and composition of complex super-micron to sub-micron particles will be investigated at high spatial resolutions using transmission electron microscopy (TEM), both by imaging and by chemical analysis. With this method, the speciation of mineral and other particles can be determined, and beam-sensitive particles, such as those containing nitrate and ammonia, can be chemically analyzed. The focus of the field deployments will be on particles of continental, marine, and anthropogenic origin in the marine boundary layer and marine free troposphere. In particular, samples obtained during the Aerosol Characterization Experiment-2 (ACE-2) will be analyzed. The PIs will participate in the Indian Ocean Experiment (INDOEX) and sample aerosols on board the C-130 aircraft. Additional ground-based measurements will be performed in Hawaii and near Xian, China.